Nonlinear Signal Processing and Wireless Communications using Frames and Operators Theory

Balan
DMS-0807896

The investigator develops a new mathematical framework for
nonlinear signal processing and wireless communication channels.
The nonlinear signal processing problem addressed here is signal
reconstruction from the magnitude of a redundant linear
representation. When the linear redundant representation is
associated to a group representation (such as the Weyl-Heisenberg
grgoup), the relevant Hilbert-Schmidt operators inherit this
invariance property. Thus a fast (nonlinear) reconstruction
algorithm seems possible. A wireless communication channel is
modeled as a linear operator that describes how transmitted
signals propagate to a receiver. For ultrawide band (UWB)
signals, the Doppler effect no longer can be modeled as a
frequency shift. Instead it is captured as a time dilation
operator. A continuous superposition of time-scale shifts is
used to model a UWB communication channel, and consequences to
pseudo-differential operator theory are analyzed.

The investigator takes up two problems related to signal
processing. In the first he considers how to represent signals
in ways that allow more effective reconstructon of them from
limited information. In the second he analyzes properties of
wireless communication channels, aiming at improvements in
transmission. The solutions to these problems have a strong
impact in the strategic area of information technology.
Important applications such as signal processing, X-ray
crystallography, and quantum computing are affected by solutions
to the first problem. High-impact applications related to the
second problem include ultrawide-band through-wall imaging
systems, higher-throughput 802.15 Wireless Personal Area
Networks, and wireless sensor networks.